Hispanics in Engineering National Conference 2004

The National Conference on Hispanics in Engineering will bring together over 300 participants for a national discussion on the best practices of promoting the engineering professions within the Hispanic community on the continuum from K-12 education, undergraduate, graduate school and engineering workforce development. The information obtained on best practices along the conferences five tracks will serve to provide this information to ABET accredited, as well as non ABET accredited, engineering colleges who seek to increase their Hispanic student enrollment and employers in their quest to increase their Hispanic engineering workforce.